Computers in Calculus, The Dearborn Project

Calculus students are benefitting from a new curriculum constructed from the best curriculum development efforts around the country. After classroom testing at Dearborn, the results will be evaluated and a package of computer laboratory materials and instructor's manual will be desktop published and disseminated.